Integration of Computer Techniques into Basic Physics Courses

This award is made as part of the Instrumentation and Laboratory Improvement program. This program funds innovative new projects for undergraduate physics laboratories. The Principal Investigator of this project is Dr. Peterson of Iowa State University.